U.S. - Turkey Symposium on Earthquake Engineering and Seismological Networks

Support is provided for several U.S. earthquake engineering researchers to travel to Turkey during the summer of 1985 to attend a U.S.-Turkey Symposium on Earthquake Engineering and Seismological Network. The symposium is intended as a means to stimulate active future research cooperation in selected subject areas of mutual concern. Turkey, being one of the most active regions of seismicity in Eurasia, is experienced in earthquake problems and resourceful in research. The Symposium will provide an adequate forum for scientists/engineers from both sides to explore opportunities and challenges in the problem areas of seismic network, ground motion study, risk and hazard analysis, and structural engineering. The discussion will be focused on the methods and technical approaches to characterize earthquake ground motions and to design and maintain facilities to minimize loss of lives and property due to earthquakes.